Nonadiabatic Molecular Dynamics in Condensed Systems

David Coker is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research in nonadiabatic molecular dynamics in condensed systems. Coker is combining nonadiabatic switching formalism with surface hopping theory to study energy redistribution between quantum and classical subsystems. This has resulted in a new approach for treating nonadiabatic dynamics in condensed phase systems. Additional new methods will be developed for simulating systems with few nonadiabatic quantum degrees of freedom in the presence of a classical bath degrees of freedom. Applications which explore nuclear nonadiabaticity include: 1) studies of the effects of solvent density on the nonadiabatic rotational dynamics of hydrogen molecule in solution and the influence they have on rotational Raman linewidths; 2) the influence of nonadiabatic dynamics and tunneling on transport of hydrogen molecule in ice; and 3) studies of solution phase intermolecular proton transfer reactions and the effects of solvent polarization and planarity on tunneling and nonadiabaticity of proton dynamics. Electronic nonadiabaticity in solution phase reactions will be studied by the introduction of a semi-empirical valence bond approach called diatomics in molecules. This approach will be used to study early time nonadiabatic dynamics after photoexcitation of diatomic iodine, diatomic iodine anion, and methyl iodide in various molecular solvents. Since most industrial synthetic processes occur in solution, it is important to gain an increased understanding of the influence which solvent has on fundamental chemical processes in solvated systems including molecular transport, proton transfer, and electronic excitation. This theoretical research will lead to an improved understanding of the factors which influence chemical reactions in solution.